UNIDATA Equipment

This award is for the purchase of computer equipment to enhance the existing UNIDATA program within the School of Earth and Atmospheric Sciences at Georgia Institute of Technology. Specifically existing workstations will be upgraded and the a PC for classroom presentation will be acquired. This upgrade will provide UNIDATA capabilities to faculty and students throughout the university through the campus LAN. The UNIDATA system will be used for research and teaching in about equal proportions. Examples of research studies that will use the UNIDATA software are: the generation and propagation of tropospheric gravity waves and Atmospheric Boundary Layer Experiment Ozone and Trace-Gas Field Program. Also, this equipment award will better enable the PIs to educate graduate students in the meteorological sciences and attract and retain undergraduates to a career in the sciences.